Superstring Theory, Black Hole Physics and Quantum Gravity

Recently,considerable progress has been made in the study of string theories.
It has been realized that superstring theory has a web of duality symmetries relating
nonperturbative effects to perturbative ones. The picture emerging is that there exists a
fundamental theory, M-theory, that perturbatively, looks like string theory, but
nonperturbatively has a very rich structure which includes symmetries relating
perturbative excitations to solitons. Another recent development
has been Maldacena's conjectured equivalence between string theory on anti-de Sitter
spaces and gauge field theories living on the boundary of these spaces. This ADS/CFT
equivalence gave more importance to the study of gravitational anti-de Sitter
configurations as they provide a tool to the study of quantum gauge field theories
important for particle physics. The main focus of this proposal is: a) to find
a complete classification of supersymmetric gravitational backgrounds in various
spacetime dimensions and to understand better the ADS/CFT correspondence and the
intricate relation between geometry and supersymmetry. b) to develop our
understanding of the nonperturbative theory underlying string theory, and incorporate
the new developments in the study of the phenomenological implications of string theory
to gravitational physics, particle physics and cosmology. The broader implications of
this proposal are that it will lead to collaboration between string theorists and differential
geometry. Also the work will take place at the Center for Advanced mathematical
Science at the University of Beirut which will become a Major Center for collaborations
among scientists in the Middle East.
NATIONAL SCIENCE FOUNDATION
Diary Note
Proposal:0703017 PI Name:Sabra, Wafic
Printed from eJacket: 02/28/07 Page 1 of 1